Supporting the Development of Model-based Reasoning

The project will test a learning progression for modeling that spans the elementary and middle grades. Modeling instruction will be organized around concepts in life sciences that cumulate to a strong conceptual understanding of micro and macro evolution. The work will take place in two districts with underserved children. A curriculum strand will be created, assessments developed and a longitudinal research study conducted. The project also includes an extensive professional development model and accompanying dissemination strategy.